Graduate Research Fellowship Program (GRFP)

The National Science Foundation (NSF) Graduate Research Fellowship Program (GRFP) is a highly competitive, federal fellowship program. GRFP helps ensure the vitality and diversity of the scientific and engineering workforce of the United States. The program recognizes and supports outstanding graduate students who are pursuing research-based master's and doctoral degrees in science and engineering. GRFP provides three years of support for the graduate education of individuals who have demonstrated their potential for significant achievements in science and engineering. This award supports the NSF Graduate Fellows pursuing graduate education at this GRFP institution.